Fully Nonlinear Partial Differential Equations in Geometry

Abstract

Award: DMS-0505632
Principal Investigator: Bo Guan

The primary goal of this project is to understand some nonlinear
elliptic and parabolic equations which arise from problems in
differential geometry. The research will be focused on three
types of geometric problems: Plateau-type problems for
hypersurfaces in Euclidean space and in more general manifolds;
the Minkowski-type problems of finding closed convex
hypersurfaces of prescribed Weingarten curvature, and problems in
isometric embedding. Each of these problems involves solving
some fully nonlinear partial differential equations. Because of
their origins in geometry, these equations are closely related
and therefore share many common technical issues. Thus, progress
in one of the problems will very likely lead to progress in the
others, and more generally in the theory of nonlinear partial
differential equations (on manifolds) and geometric analysis.

Fully nonlinear equations also arise in other problems in
geometry and physics as well as in science and
engineering. Results from our research may have impact and
applications in areas such as string theory in physics, and
optimal control theory.